Digital Government: COPLINK Center: Information and Knowledge Management for Law Enforcement

EIA-9983304
Chen, Hsinchun
University of Arizona

Digital Government: COPLINK Center: Information and Knowledge Management for Law Enforcement

The information and knowledge management problems facing many government agencies stem from barriers to access and utilization resulting from the content and format of information. These problems make information (and eventually knowledge) creation and utilization and complex and daunting process. New knowledge management technologies have started to emerge in a number of different applications and organizations, such as virtual enterprising, joint ventures, aerospace engineering and digital libraries. However, there has been no systematic attempt to study the technical, social and managerial foundation, theory and methodology of knowledge management that can be adopted in various social and industrial contexts. The COPLINK Center for Excellence aims to achieve the following two goals: 1) Develop knowledge management systems technologies and methodology that are appropriate for capturing, analyzing, visualizing and sharing law enforcement related information in social and organizational contexts. The basis of such research will be grounded in information retrieval, computational linguistics, information visualization, artificial intelligence, multimedia systems, multi-agent systems, and telecommunications. 2) Study of organizational, social, cultural and methodological impacts and changes that organizations need to make to maximize and leverage on a law enforcement agency's investments in information and knowledge management. The academic foundation for such research will be based on social informatics, decision theory, communication theory, cognitive psychology and managerial and organizational research.